Access To A Competitive Networked Multimedia Research Environment for Minorities

9415986 Ward The objective of the CISE II-MI grant which this planning grant will develop is to provide the minority students enrolled in Hunter College of the City University of New York with a Multimedia Instructional Facility for Computer Science. In accomplishing this objective a number of specific "strategic tasks" have been identified. These tasks include the acquisition of resources, attainment of specific levels of recognition, and reorganization of infrastructure. While different in nature, all are considered vital to accomplish the primary goal. Specifically, the tasks are: i) effective allocation of new office space; ii) accreditation to the Computing Sciences Accreditation Board (CSAB); iii) establishment of properly equipped core computer science laboratories; iv) establishment of a Machine Learning and Cognition Center The II-MI award will be used to accommodate these plans as follows: i) provision of two 30 workstation based laboratories and coordination of this equipment with envisaged Software Design and Computer Architecture laboratory sequences: ii) provision of additional computing resources for the graduate research laboratory; iii) provision of a communications infrastructure to link the undergraduate laboratories, research laboratories, faculty and staff; and iv) provision of salary support for the first five years of a full time network administrator position.